ITR/SY Molecular Computation in Ciliates

This research will focus on the interplay between molecular biology, computer science, and evolution to probe a complex form of biological information processing: gene unscrambling in hypotrichous ciliates. The long term goal is to develop a multidisciplinary approach to this problem that will enable us to tap into this biological process as a computational tool. The proposed research combines three approaches that first improve our understanding of the function, mechanism and logic of this phenomenon. Specifically, this proposal uses gene unscrambling as a model system to explore the mechanisms underlying complex gene rearrangements in ciliates the steps through which these processes have evolved, and their capacity to solve hard computational problems in vivo. The impact of the award would be an influx of new ideas and direction from computational sciences into the study of a complex biological system involving programmed genome rearrangements in ciliated protozoa, with the ultimate goal of harnessing the process for the purpose of performing in vivo computation.